Three-Dimensional Convection and Magma Migration Beneath Mid-Ocean Ridges: A New Approach to Multi-Scale Mantle Dynamics

9402922 Sparks In this project the PIs will investigate magma migration and various scales of mantle flow. They will perform 2- and 3-D numerical modelling to address questions concerned with melt channelling and focusing. They will use a time-efficient gridding technique (Fast Adaptive Composite gridding) to obtain high resolution at various scales that may be needed.